Neural Mechanisms for Generating Temporal Coding

Bose
9973230
The goal of this project is to develop biophysical models
and the accompanying mathematical techniques to describe the
generation of temporal codes by the activity patterns of networks
of neurons. The investigators focus on a robust temporal code,
called phase precession, that has been experimentally found in
the firing pattern of pyramidal cells in the hippocampus of
freely moving rats. This temporal code is believed to signal the
animal's location in a known environment. The investigators apply
a modeling approach consisting of three complementary methods:
mathematical analysis of networks of simplified neurons,
simulations of networks of biophysical neurons, and functional
modeling that incorporates and interprets experimental recordings
from freely moving rats. The mathematical approach, using
geometric singular perturbation theory, exploits the multiple
time scales inherent in the intrinsic descriptions of the cells
and the synapses between these cells. Simulations are performed
on networks of conductance based neurons. Genetic algorithms,
previously developed by the researchers, and bifurcation
continuation programs aid in analyzing the simulation results. A
goal of the analysis and simulations is to make experimentally
verifiable predictions.
The hippocampus is a primary target for epilepsy and
Alzheimer's Disease and has a well established role in memory
function and in spatial navigation abilities. The dynamical
interaction between neurons in the hippocampus may be described
using temporal coding schemes. In order to detect potentially
pathological dynamics of these neurons, it is essential to first
understand how these coding schemes are constructed under normal
circumstances. More generally, a fundamental goal of neuroscience
is to understand function from the single neuron level to the
systems level. The objective of this project is to bridge all of
the levels of detail for one specific system, the hippocampus.
This work will also lay the mathematical foundation for research
in other areas of the brain where temporal codes exist. Funding
for the project is provided by the program of Computational
Mathematics and the Office of Multidisciplinary Activities in MPS
and by the Computational Neuroscience program in BIO.